Indices and Relative Indices in Contact and CR-Geometry

Abstract

Proposal: DMS-9970487
Principal Investigator: Charles Epstein

Let (X,H) denote a compact, odd dimensional manifold with a
contact structure, H. The basic examples are (1) The co-sphere
bundle of a compact manifold, (2) The strictly pseudoconvex
boundary of a complex manifold. Any contact manifold has a
distinguished algebra of pseudo-differential operators called the
Heisenberg algebra. Epstein and Melrose, building on work of
Boutet de Monvel and Guillemin, identified a family of order zero
projection operators in the Heisenberg algebra, generalizing the
Szego projector defined on the boundary of a complex manifold.
They established that if S, S' are two such projectors then the
projection defined by S from the image of S' to the image of S is
a Fredholm map. Let i(S,S') denote the index of this
restriction. We call this the relative index. By considering
Heisenberg operators which act on vector bundles, many classical
index problems can be re-phrased as relative index problems for
pairs of generalized Szego projectors. The main thrust of the
proposed research is to obtain formulae for the relative index in
terms of more classical geometric invariants, such as indices of
Dirac operators and holomorphic Euler characteristics. A general
relative index formula of this type will allow Epstein and
Melrose to completely settle the general case of the
Atiyah-Weinstein problem, asking for a geometric formula for the
index of an FIO defined by a contact diffeomorphism between two
co-sphere bundles. Beyond this the investigator plans to search
for analytic invariants of contact structures. Using an approach
suggested by Lempert and an extension of the Heisenberg algebra
he hopes to obtain a second formula for i(S,S'), which should be
useful in studying the small embeddable deformations of the
CR-structure on a strictly pseudoconvex, compact CR-manifold.

Partial differential equations are the principal tool for
mathematical descriptions of problems in physics, chemistry,
economics, etc., and it is a fundamental problem to decide how
many solutions, if any, such an equation has. In general this
problem is too delicate to solve exactly, but there is a number
called the Fredholm index which can estimate the number of
solutions. The main result in this subject is the "Atiyah-Singer
Index Theorem." The research proposed by Epstein is concerned
with extending these ideas to more general classes of equations
which arise in the context of "contact manifolds," a natural
arena for problems in mechanics and control theory. Analytical
tools are being developed which should have many applications
beyond the formula for the Fredholm index.